Development of a Computer Program for Mathemataical and Graphical Treatment of Radiogenic-Isotope Data

9722719 Ludwig This award supports the development of software for analysis and graphical presentation of data relating to research in geochronology relying on radioactive isotope systems. The Isoplot program, currently in use by a majority of geochronology laboratories worldwide, will be upgraded for adaptability to modern hardware/software platforms. The upgraded version of the Isoplot program will be made available at no charge to any interested user. ***